GOALI: Evaluation of System Integration Solutions for Computer-Aided Assembly Planning

This grant provides funding for the evaluation of system integration solutions to computer-aided assembly planning. Three solutions of system integration are considered. First, an assembly design viewer and a process specification system are included in system integration. Second, an assembly modeling system is added and integrated with an assembly design viewer and a process specification system. Third, functions of assembly design viewing, process specification and production simulation are integrated in a virtual reality system. Production engineers from the manufacturing industry will participate in an experiment. The three solutions together with three packages of application software will be presented to production engineers. For each solution, subjects will be asked to use the corresponding package of application software to perform assembly planning. Subject performance will be measured. Subjects will also be given a questionnaire to obtain their subjective evaluation of the three solutions. Both objective data from the experiment and subjective data from the questionnaire will be analyzed. Based on the results, a system integration solution for computer-aided assembly planning will be recommended. The proposed work will be performed in collaboration with researchers at the National Institute of Standards and Technology (NIST). The results of this research will reveal the advantages and disadvantages of various system integration solutions for computer-aided assembly planning. The recommended solution of system integration will lead to the future research and development of knowledge, technology and commercial software products towards an effective system integration for computer-aided assembly planning. The proposed work will directly contribute to the NIST System Integration for Manufacturing Applications Program. The exchange of knowledge, experience and technology with NIST researchers will spin off new collaborative relationships and projects.